Undergraduate Summer Research Program in Mechanical Engineering

Abstract 9531545 Pauley This REU Site will provide opportunities for 10-12 mechanical engineering students to participate in research related to real problems in manufacturing systems, control systems, thermal systems, combustion and fluid mechanics. Each student will work one-on-one with a faculty advisor to define and execute a complete and original research study. The student will be expected to take an active role in defining the objectives of the study and the research methods to be used. During the research process, the student will apply and extend the knowledge gained from engineering courses. The final results of the research will be a report detailing the procedures and results of the investigation, and a formal oral presentation during the final seminar week of the summer program.